ITR: Self-* Storage Systems

Human administration of storage systems (including capacity planning,
back-up, load balancing, etc.) is a large and growing issue in modern
IT infrastructures; reported ratios of 1 sysadmin per 1-10TB of storage
are scary with multi-petabyte data centers on the horizon.

This research program defines and explores a new storage architecture
that integrates automated management functions and simplifies the human
administrative task. We refer to conforming systems as self-* storage
systems in an attempt to capture many recent buzzwords in a single
meta-buzzword; self-* systems should be self-configuring, self-organizing,
self-tuning, self-healing, self-managing, etc. Human administrators
provide only muscle for component addition and guidance on acceptable
risk levels and current levels of satisfaction. Borrowing organizational
ideas from corporate structure and technologies from AI and control
systems, self-* storage should simplify storage administration, increase
system robustness, and simplify system construction.